Problems in the Economic Analysis of Law

Economic considerations permeate the ways in which different laws or rules relate to various aspects of corporate control. Despite the fact that rules influence corporate behavior and the structure of the market, systematic theoretical and empirical work is far too scarce. Dr. Bebchuk seeks to investigate the influence of economic factors in this area by means of the development of several theoretical models to examine 1) how laws or rules with respect to fee-shifting affect the incentive to sue; 2) the way in which scope of the liability for losses due to breach of contract is affected by situations in which the buyer places a high value on contract performance (a value that the seller is unaware of) and where there are transaction costs in determining that value; 3) a new method for corporate reorganization which overcomes what are now thought to be problems inherent in the reorganization process; 4) how alternative rules for allocating costs incurred in proxy contests may be utilized to provide input to the evaluation of possible changes in the law governing the financing of proxy contests; 5) the interpretation of charter provisions of management powers and duties; and 6) a normative standard for evaluating legal rules governing corporate acquisitions. A young, productive scholar with a concern for making his results accessible to both legal scholars and economist, Dr. Bebchuk is especially well situated to contribute to illuminating the interface between law and economics in the area of corporate control.